Research Careers for Women in Chemistry: Challenges and Opportunities, Agnes Scott College, March 3, 1989

This project is in the discipline of chemistry, broadly defined, with a specific focus on education and human resources. The thrust of this activity is a multi-part workshop, symposium, panel discussion, and outreach activity that is designed to acquaint women faculty members and students in the Southeastern United States with career opportunities in chemistry and Foundation programs that are structured to enhance the research careers of women scientists and engineers. Dr. Alice Cunningham, Kenan Professor of Chemistry and Chairperson of the Department of Chemistry at Agnes Scott College, will contact some 450 institutions of higher learning in the 10-state southeastern region of the U.S. and informing them that four outstanding women scientists will describe their research programs and discuss career opportunities for women in chemistry at a symposium that will be held on Friday afternoon, March 3, 1989, at Agnes Scott College. Additionally, NSF staff will conduct an ROW Outreach on the morning of March 3, 1989, preceding the symposium. This project will contribute to the infrastructure of science by showcasing the achievements of women in chemistry and cast those women as effective role models for the women students who will attend the symposium. The participants in the symposium are particularly well-suited to this activity in that two of them (Cunningham and Morse) are members of the American Chemical Society's Committee on Professional Training and two others (Dixon and Lester) are currently NSF Research Opportunities for Women- Career Advancement Award grantees. Additionally, the focussed inclusion of minority (e.g., Spellman College) and numerous undergraduate institutions among the invitees is a particularly important aspect of this activity.